RUI: Gene Expression in the Meristem During Floral Initiation

The objective of this project is to characterize the shifts in gene expression that accompany the transition between vegetative and reproductive growth in H. niger. The investigation will utilize low temperature and long photoperiod as environmental stimuli to induce the transitions, and changes in mRNA and protein populations of the apical meristem to monitor them. Cloned stage.specific cDNAs will be sought, and used as probes for in situ localization of the corresponding gene expression. H. niger is a good system for these studies, as its vegetative. re4productive transition manifests an absolute requirement for the temperature/photoperiod environmental cues. This research will increase understanding of molecular genetic events intrinsic to the flowering process. As a RUI project, it will expose undergraduates to rigorous molecular approaches to biological research, and provide insights of relevance for career choices.